REU-Site: Regional Initiative to Promote Undergraduate Participation in Experimental and Computational Materials Research

NON-TECHNICAL SUMMARY:

This award is funded in whole or in part under the American Rescue Plan Act of 2021 (Public Law 117-2).

The University of Alabama at Birmingham (UAB) in partnership with Historically Black Colleges and Universities (HBCU’s) in Alabama will host a Research Experiences for Undergraduates (REU)-site in experimental and computational materials research. This REU-site project plans to recruit students from underrepresented groups and academic institutions where research opportunities are limited. This project offers a broad range of interdisciplinary materials research experiences to undergraduate students with a diversity of backgrounds in physics, chemistry, applied mathematics, and engineering. The undergraduate students will gain experience in materials synthesis, materials characterization and computer modeling and simulations during their ten-week research stay at the UAB campus. The scientific research projects have been specifically developed for undergraduate students by an interdisciplinary team consisting of science and engineering faculty at UAB. This project will continue to provide lecture series and workshops in materials growth and characterization, research ethics and professionalism, innovation and entrepreneurship and preparation for graduate school to all participants. The REU participants will publish their findings in peer-reviewed journals and/or present at professional meetings leading to a broad dissemination of new knowledge created in the undergraduate research projects. This REU-site plans to develop a pipeline of undergraduate researchers who will become leaders in advances in science and discovery of novel materials and contribute to economic development and national defense.

TECHNICAL SUMMARY:

REU-research projects are organized in four research clusters: (1) materials under extreme conditions (2) machine learning and simulations in materials research, (3) infrared lasers and spectroscopy, and (4) polymeric biomaterials and capsules for drug delivery applications. The undergraduate research projects will contribute to fundamental understanding of phase transformations and degradation of materials under extreme conditions, machine learning enabled materials discovery, materials for mid-IR lasers and quantum information systems, and 3-D printed biomaterials and stimuli responsive polymers. Some research projects will also involve the use of national x-ray synchrotron facilities and neutron diffraction facilities in materials research. The undergraduate student projects have short-term achievable milestones, while simultaneously contributing to longer-term scientific goals and technological applications. Our teaming arrangement of REU-participants with faculty and graduate students, giving poster and oral presentations, writing a research-style paper, and attending training seminars in scientific communications and ethics will help REU students see the big picture of what it takes to develop into a research scientist with the critical skills needed for analyzing, interpreting, and presenting scientific data.